REU SITE: Parallel Processing

This project will bring fourteen students to Utah State University for eight weeks in the summer of 1992. Recruiting will be primarily in Utah, with a focus on minorities and women, and in particular Native Americans. The students will develop tools useful for the research projects through a series of lectures, and then will work on particular research projects with Utah State faculty members. The following research topics will be emphasized: parallel algorithms, debugging tools for a parallel environment, optimization which combine fine grain parallelism with course parallelism, and neural networks.